GOALI: Stochastic Behavior in Polymer Optical Fiber Drawing

ABSTRACT

National Science Foundation

Proposal Number: CTS-0626533
Principal Investigator: Emery, Ashley
Affiliation: University of Washington
Proposal Title: GOALI: Stochastic Behavior in Polymer Optical Fiber Drawing

High speed transmission in optical fibers can be achieved by step or graded refractive indices or by the new area of photonic bandgap fibers based on using an internal air core. These fibers offer a wide range of exciting and unique optical performance characteristics including pulse amplification, frequency conversion, third harmonic generation, and lasing. They also offer the potential for extremely low signal attenuation and negligible chromatic dispersion. Photonic bandgap structures can also be designed and utilized for a wide range of the electromagnetic spectrum, from visible to microwave frequencies, due to the tremendous design flexibility that is possible in choosing virtually any hole size and spacing, as appropriate for the desired optical wavelengths. To date, the vast majority of photonic bandgap fiber development has been carried out using silica glass. This project proposes to tap the virtually unexplored area of photonic bandgap polymer fiber and to focus in particular on the transport phenomena associated with fabrication of these fibers. The challenge for development of photonic bandgap fiber is that the optical quality and performance of the fiber is highly dependent on the manufacturing process. In particular, the development of photonic bandgap fiber is crucially dependent on the ability to maintain accurate control of the hole diameters and spacing. Polymer optical fiber (POF) development has been hindered by insufficient knowledge of the fundamental transport phenomena during manufacturing. Several key findings from our previous research have resulted in a greatly improved understanding of the fundamental transport phenomena during POF drawing, and an equally dramatic reduction in diameter variation. The proposed research is highly collaborative and will involve automated birefringence imaging of photonic bandgap POF as it is being drawn in order to measure the degree of molecular orientation, depending on the draw process conditions. Fiber drawing experiments will be carried out at the University of Washington along with surface characterization and dimensional tolerances of the photonic bandgap fiber. The draw process for photonic bandgap fiber will be numerically simulated with a focus on the effects of uncertainties in material properties (e.g., surface tension, geometry, draw conditions, and convective heating). Tests will also be carried out to assess the optical performance of the photonic bandgap POF. With respect to Broader Impacts, the co-PIs of this proposal are strongly committed to the integration of research and education and to broadening the participation of underrepresented groups. Each of the co-PIs has demonstrated a continuing commitment through advising undergraduate research, developing hands-on workshops for K-12 students, and leading activities that give students an opportunity to experience the excitement of discovery through disciplined study and research. The application of photonic bandgap fiber is entirely new to mechanical engineering, and it therefore offers a wonderful opportunity to attract students to engineering research in the fields of polymer processing, fluid dynamics, and heat transfer.